A Regional Center for Calculus Reform at Northeastern University

9450764 Gaffney A regional center for calculus reform is being established in the Boston area centered at Northeastern University. As part of this effort, curriculum reforms are being made to the multivariable and differential equation courses, and throughout the full range of calculus and precalculus courses. The completed reforms will affect over 150 sections; over 15,000 students will enroll in these courses in the next 5 years. Working with Northeastern's Comprehensive Regional Center for Minorities, the project is strengthening and helping create precalculus and calculus programs in public high schools in the City of Boston, and other urban school districts with large minority enrollments. As an incentive for students and teachers to join this program, Northeastern will award credit to all high school students completing a calculus course through this program. There will also be a regional network of school teachers and college faculty committed to the adaptation and dissemination of the ideas and techniques of the reform movement, reaching thousands of area students. This network will maintain a software and materials library and sponsor seminars, workshops, and regional conferences.